An Anisotropic Decision Aid Model of Spatial Preference and Choice

A key characteristic of the spatial choice and behavior literature is that many of the most frequently investigated behaviors involve choices among a discrete set of stimuli. Frequently studied discrete choices include mode choice, residential choice, destination choice, industrial site choice, land use policy choice, and retail choice. Psychophysics and cognitive science research finds that perception is probabalistic; even at the individual level there is a random effect in how individuals perceive stimuli. This research project will develop and evaluate a model that acknowledges the probabalistic nature of the spatial preference and choice process by portraying stimuli as having differential amounts of variation. The proposed model has estimation properties that allow it to be directly used as a decision-making aid in ways that previous models cannot. By explicitly modeling uncertainty and ambiguity, the model will allow for the unique estimation of a single ideal stimulus or ideal decision alternative. The proximity of existing decision alternatives to the ideal decision alternative determines each alternative's utility. This is not possible with existing models. The model will be tested using consumers expressing individual preferences for residential alternatives and analysts making consensual public policy recommendations. Probabalistic choice models were conceived because observed behavior was too complex to be accounted for by simpler deterministic models. This project continues this tradition by seeking to develop a probabalistic choice model that will enhance the ability to model a variety of complex behaviors. The resulting model will be useful in describing individual as well as consensual decision-making. In addition to its attractive mathematical properties, the model opens up a variety of new process models for conceptualizing individual decision-making.